Postdoctoral Research Fellowships in Chemistry

Dr. Sonny Lee has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Lee's doctoral degree was from Harvard under the supervision of Professor Richard Holm. Dr. Lee intends to continue research at the California Institute of Technology with Professor Harry Gray where he intends to study photoinitiated electron transfer. This will also expose him to techniques of molecular biology such as site directed mutagenesis, and protein purification and handling. This experience will prepare him for his long term goals of studying the coupling of electron transfer to chemically active sites in biological systems. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.